ENGINEERING RESEARCH EQUIPMENT: A One-Component Laser Doppler Velocimeter System for Turbulent Particulate Flows in Hydraulics

Funded by an Engineering Research Equipment Grant, equipment will be purchased for use in an investigation of turbulence in sediment-laden flows. Grid-generated turbulence in a fluid- particle medium will be explored with a laser-Doppler velocimeter capable of measuring instantaneous fluid and particle velocities. The particles will be matched to the fluid with the same index of refraction. Suspension of particulates occur in a variety of flow applications in the civil and environmental engineering area.